Hydrogen Bonding in Polyurethanes

This one year supplement to NSF Grant No. INT-8509252 between Z. Petrovic, University of Novi Sad and W. MacKnight, University of Massachusetts was approved by the U.S.-Yugoslavia Joint Board for Scientific and Technological Cooperation in May 1988. Supplemental support is recommended to complete the joint research project on hydrogen bonding in polyurethanes.